Experimental Studies of Amphibian Community Organization

This research concerns an experimental analysis of amphibian community organization. Experiments in natural and artificial ponds will integrate the effects of habitat selection, disturbance, priority effects, and interphyletic competition with previously studied impacts of intra- and interspecific competition and predation on the growth, survival, and species composition of anurans from the New Jersey Pine Barrens. Field experiments will explore how habitat selection, priority effects, and disturbance interact to set initial anuran guild composition. Ancillary studies of resource abundance will identify mechanisms of interaction. Experiments in artificial ponds will measure the intensity of diffuse interphyletic competition from aquatic insects relative to intra- and interspecific competition among anurans. These experiments will also separate the effects of vertebrate and invertebrate predation on interphyletic competition among tadpoles and insects.